Magnetic Particles from Clustering of Metal Atoms in OrganicMedia and Inert Gases

This project is in the area of the Materials Chemistry Initiative with a focus on the study of the magnetic properties of fine particles, as well as aggregates, powders, films and other bulk materials that can be created from these particles. This group will also study preparation techniques for fine particles and the physics of their aggregation and growth to bulk materials. These two intents, while they may stand alone, are complementary in that as they gain an understanding of magnetism in fine particles and their aggregates they also develop a complementary understanding of how these systems may be prepared. They will alter preparation techniques to achieve systems with unique and useful magnetic properties. More specifically, the goals are: 1. To determine how magnetic properties are dependent upon particle size, composition, and morphology. 2. To develop techniques for fine magnetic particle preparation and understand the chemistry and physics of their preparation. 3. To study aggregation and growth of magnetic particles and the resultant morphology. The results of this work will lead to creation of novel and useful magnetic materials.